Workshop on Brain Dynamics and Neurocontrol Engineering; St. Louis, Missouri; June 25-27, 2017

The goal of this workshop is to bring together researchers from the dynamics & control and neuroscience communities with the purpose of identifying promising future research directions focusing on the use of dynamical systems and control theory to study the workings of the human brain. The workshop will be held in Washington University in St. Louis on June 25-27, 2017.

Recent years have witnessed substantial cross-cutting interest in the use of dynamical systems and control theory in the study and engineering of biological systems. The goal of this workshop is to provide a focused forum for the discussion of research synergies between experts from the dynamics, control and neuroscience communities. By facilitating this discussion early in the inception of this interdisciplinary area, the workshop will aid in ensuring long-term, sustained research impact. The workshop will broaden the reach of the systems and control community by creating new opportunities for synergy with the neuroscience community. The workshop will also emphasize student participation through a poster session and involvement in organizing the workshop through a student organizing committee.